U.S.-Mexico Collaborative Research: Liquid Crystals and Colloidal Semiconductor Particles

This U.S.-Mexico award supports Professor Janos Fendler of Syracuse University in a research collaboration with Professor Luz Alicia Focugauchi of the Instituto Nacional de Investigaciones Nucleares in Mexico. The researchers intend to prepare and characterize surfactant-vesicle- entrapped semiconductors, liquid crystals, and polymerized liquid crystals. Molecules that contain hydrophilic and hydrophobic regions are called surfactants (surface active agents), amphiphiles, or simple detergents. They are the building blocks for aqueous and reverse micelles, microemulsions, liquid crystals, polymerized liquid crystals, vesicles, and polymerized vesicles. All of these systems have a common theme in that they mimic the functions of biological membranes. For this research, the U.S. investigator will contribute his expertise in many facets of membrane mimetic chemistry, while the Mexican investigator will bring to bear her expertise in the application of positron annihilation techniques to the study of surfactant based organized media.